Connected Mathematics Phase II

9986372
LAPPAN

Michigan State University is revising the "Connected Mathematics Project (CMP)" materials designed for middle school students. In preparation for the revision, critical reviews of the first-edition materials are being sought from mathematicians, teachers, technology experts and education researchers. Additionally, student achievement data is being collected to assess the depth of understanding and proficiency with fractions, decimals, percents and integers that students are developing. The author team uses this input and the experience gained from implementation of the first edition to revise the student texts, teacher resource materials, assessment materials and implementation materials. Materials for the professional development of teachers are also being developed. Prior to publication, every unit is to be critically reviewed by a mathematician, two other authors and five experienced teachers.